Integrated Senior Projects Laboratory for Parallel Computing, Computer Graphics, and Software Engineering

The complexity of technical fields like Computer Science has grown so rapidly that traditional undergraduate labs no longer present adequate representations of contemporary work. This gap is often filled by work-study programs which supply realism but generally do not identify and reinforce fundamental principles. Weakness in undergraduate labs is due in part to inadequate equipment, but more generally, complexity often exceeds that which any one student can be expected to master in a structured project environment. A solution to this dilemma being developed by the NCSU CSC Dept. is a collaborative senior projects lab which emulates the scope and complexity of an R&D organization yet is carefully supervised by teaching faculty. A small but powerful parallel computer and high performance color graphics system will be acquired and integrated with existing, conventional computing support. Advanced applications of this system will require students specializing in computer graphics, software engineering and parallel computing to join forces to solve problems none could have attempted in isolation on equipment that would be difficult to justify for any single, specialized lab. the interplay of theory and practice from three typically distinct subjects will enrich the lab experience for each student and provide realistic complexity without losing sight of basic principles.